Modeling the MELT Electromagnetic Data: Topography and Anisotopy

The Mantle Electromagnetic and Tomography (MELT) geophysical experiment, carried out around 17 degrees south on the East Pacific Rise, utilized seismic and electromagnetic observations to determine the geometry of the region of partial melting and the pattern of upwelling beneath a spreading ridge. This project will further the analysis of the MELT electromagnetic data by : (1) developing an improved, numberical-based approach for stripping out the topographic effects from the seafloor, (2) developing an anisotropic version of a 2D inversion algorithm, (3) applying both of these tools to the MELT data, and (4) conducting an integration of the MELT seismic and electromagnetic data.